Collaborative Research: TogetherCS: A Systematic Investigation of Collaborative Programming Models for Upper Elementary School

In K-12 computer science (CS) education, collaboration is a key practice for all grade levels in CS standards, but there are still significant gaps in understanding how students can be supported in collaborating. In addition to being a central workforce skill, collaboration also supports students' sense of agency, sustained engagement, and conceptual understanding of CS. This project advances the field's understanding of student collaboration in CS education, focusing on upper elementary students. The project explores how different models of collaborative programming can impact quality of collaboration, student engagement, learning outcomes, and attitudes toward CS. By investigating these models, the project is determining how varying the types of CS activities, number of computers, student roles, and pairing strategies can influence students' collaborative practices; and through these their conceptual understanding of CS, their interest in the subject, and their teachers' confidence in leading CS instruction. The findings will help educators better support students' sustained engagement in programming activities, conscious control over their learning, and understanding of CS concepts. Dissemination of these findings is through both reports of research results and through models of instruction that can be employed with different CS curricula.

This study of fourth and fifth grade classroom work in computer science compares and examines student learning across different conditions of dyad collaboration on computers. One condition has two students work at one computer; another condition has them work in sync on two computers in the same online space; and a third condition has them work in sync on two computers while guided to play roles of proposer and reviewer. The idea is to mimic problem solving through collaboration as it is important in CS industry, while also leveraging the collaboration as learning support. Prior research has found that assigning roles helps students be more productive, and this study examines this in more detail both in terms of the outcomes, quantitatively documented, and qualitatively in terms of the processes of learning. North Carolina State University and SRI partner in this work, which is conducted in elementary schools in North Carolina and California. A pilot study of 24 students and focus groups refines instruments and procedures. A larger study is conducted with 300 4th and 5th graders.

This project is co-funded by NSF's EDU Core Research (ECR) program. The ECR program emphasizes fundamental STEM education research that generates foundational knowledge in the field. Investments are made in critical areas that are essential, broad and enduring: STEM learning and STEM learning environments, broadening participation in STEM, and STEM workforce development. This project also is co-funded by the Innovative Technology Experiences for Students and Teachers (ITEST) program, which supports projects that build understandings of practices, program elements, contexts and processes contributing to increasing students' knowledge and interest in science, technology, engineering, and mathematics (STEM) and information and communication technology (ICT) careers.